Mathematical Sciences: Connections Between Geometry, Topology, and K-Theory

This research project is concerned with homotopy theory and how it impinges on several related areas. Friedlander works on the interface of algebraic geometry and algebraic topology. His investigations involve algebraic groups, algebraic geometry and algebraic k-theory. The common theme is the exploitation of relationships between algebraic geometry and homotopy theory. Priddy's current interest is in the emerging area of homotopy theory which uses modular representation theory and invariant theory. Stable splittings of spaces are an important example of such applications. Mahowald's work is primarily in stable homotopy theory and also in the unstable homotopy of spheres.